REU SITE: An REU Site in Physics at the University of Florida

9820518
Ingersent
The University of Florida will establish a Research Experiences for Undergraduates (REU) Site in its Physics department with a focus on condensed matter physics, both theory and experiment. Twelve undergraduate students will be recruited nationwide for a ten-week summer research experience. Efforts to recruit members from groups under-represented in the sciences will be assisted by the Office of Minority Affairs and the Center for Women's Studies at the University of Florida.

Undergraduate students will be involved in physics research that includes a variety of topics in condensed matter physics and accelerator physics. In addition, REU participants will attend weekly seminars, a workshop on communication skills, field trips to research facilities and social activities.